Graphs with Bounded Treewidth and Complexity of Restricted Discrete Optimization Problems

The concrete complexity behavior of some NP-hard discrete optimization problems will be investigated, with instances restricted to graphs having tree-representable structure (for instance, k-trees, series-parallel graphs, or interval graphs.) A major tool in this research is the concept of treewidth of graphs. Families of graphs with bounded treewidth admit a special type of non-serial dynamic programming approach leading to algorithms efficiently solving many difficult discrete optimization problems. The work of Robertson and Seymour on well-quasi orderings of graphs implies existence of low-order polynomial time solution algorithms for many inherently difficult optimization problems, when instances are restricted to wide classes of graphs. However, such algorithms suffer a double weakness: they require knowledge of a finite obstruction set, and the general design paradigm constructs algorithms that execute in polynomial time but with multiplicative constants of astronomic magnitude. The proposed research will deal with these deficiencies in two ways: investigating means to construct obstruction sets for families of graphs with uniformly bounded treewidth and streamlining solution algorithms for particular discrete optimization problems, as the full generality of the algorithm design paradigm often is not necessary.